A Chemistry and Biochemistry Summer Undergraduate Intern Program in Alaska (REU)

The University of Alaska at Fairbanks is being supported by the Chemistry Division and the Division of Instrumentation and Resources to establish a Research Experiences for Undergraduate (REU) SITE. The purpose of this SITE is to provide meaningful hands-on research opportunities in contemporary chemistry and biochemistry for outstanding undergraduate students under the supervision of experienced research chemists. For the summer of 1988, the program will support 8 students recruited from the University of Alaska and other institutions. Research activities will include the following areas: o Raman spectroscopy o Atmospheric, environmental and analytical chemistry o Chemical ecology o Petroleum and geochemistry o Bio-organic and marine chemistry o Chemical anthropology and molecular evolution